A Collaborative Workshop for Young Scholars in Astronomy

Lowell Observatory and Northern Arizona University propose to extend their recent Collaborative Agreement to establish the National Undergraduate Research Observatory in Flagstaff, Arizona to include a program for twelve gifted/talented high school juniors/seniors. These students will be introduced to the basic principals and practice of astronomical observation under the direction of teams consisting of practicing, established astronomers at Lowell and NAU and two Arizona high school teachers. The following Young Scholars Program is designed to achieve the following goals and objectives: To provide ten gifted high school juniors with a three-week, intensive array of activities designed to introduce them to the fundamentals of astronomical theory and practice. The activities should also enhance their appreciation of science, mathematics, and engineering, in general; to introduce these students to the many astronomy related opportunities available; and to provide students with a serious consideration of the scientific method in context of astronomical theory and practice as well as relevant issues related to the philosophy and ethics of science.